Mathematical Sciences: Geometric Nonlinear Harmonic Analysis

9400230 Semmes The proposed research involves a combination of harmonic analysis and geometric measure theory that is somewhat complicated. Conventionally one likes to ask questions about the relationship between the geometry of a set in a Euclidean space and the analysis of functions and linear operators associated to this set. One can also consider the geometry and complexity of sets in Euclidean spaces for their own sake, and look for methods to detect when a set has some nice interesting structure, e.g., when it can be parametrized in a nice way with estimates. For this latter endeavor harmonic analysis has a slightly indirect relevance, by providing guidance for what "interesting structure" might mean, as well as useful techniques. However, many of the traditional tools of harmonic analysis do not apply in this inherently nonlinear setting, and in fact there are results in the geometric setting whose counterparts in classical analysis are false. The work of Semmes involves the interplay between measure theory, geometry and analysis. Given a set of points in space, one can ask whether it can be measured. In the case of a one dimensional set, this is the question of whether it has finite length. This can be a very subtle question in analysis. Classical answers to this question often involve boundedness of certain operations on spaces of functions on the set. In this project answers to the question of "measurability" will be sought where the classical approaches cannot work. This will involve replacing the classical operations by more complicated nonlinear operations. ***